MPWG: Engineering Summer Camp for Middle School Girls

HRD-9631386 Worcester Polytech Inst. Nicoletti, Denise "Engineering Summer Camp for Middle School Girls" The goal of the proposed effort is to create a residential summer camp for seventh grade girls that will generate interest and excitement about engineering and technology and the ways it can be used to help individuals, organizations, and society. This camp will address a need for an intervention program in Central Massachusetts that will reach girls at an early enough age such that they develop self-esteem and self-confidence in the areas of math and science and realize the importance of taking four full years of mathematics in high school. The central and unique feature of the camp experience will be a community service design project in which teams of students solve a problem for a "customer" in the Worcester community using teamwork and an engineering design process. Other program activities will include hands-on experiential workshops and field trips. The administrative structure of the camp will be designed to expose girls to a broad spectrum of female role models along the "pipeline," from female high school students to engineering faculty and practicing engineers. Several strategies will be used to ensure long-term effects of the camp experience, as well as to magnify the camp's sphere of influence. Follow-up activities will be planned during the school year, and wherever possible, participants will be funneled into math and science intervention programs for high school students. Outreach to parents will be an important aspect of the intervention program, and middle school math and science teachers will be part of the camp's administrative staff, learning about engineering and career opportunities along with the girls. A unique and potentially powerful aspect of this project is that summative evaluation of the camp will be conducted using a control group of girls with similar backgrounds who did not experience the intervention program. T hus, the effect of the intervention program on girls' interest in technology and their progress and educational planning for the remainder of middle school and high school will be measured relative to the effects of other variables. ***